Improving Mathematical Skill and Attitudes of Under-prepared College Freshmen

Mathematical Sciences (21)

This project produces a prototype for a curriculum project to increase the participation and success of an under-represented minority population in mathematics and the sciences. It develops non-traditional materials and accompanying assessment materials for developmental courses. These materials help students relate the analytical methods of mathematics to the rest of their world, think mathematically in investigations that guide their conceptual development, and develop a social support network for learning. It includes development of professional development workshops for faculty to pilot the materials. Products include curriculum materials for a developmental mathematics course at the level of elementary algebra, supplemental materials that support the least prepared students in a laboratory environment to learn or strengthen underlying conceptual understanding, a prototype for workshops intended to prepare instructors to use these materials effectively, and a plan for testing the prototype in other settings.